A Center For Undergraduate Research In Computer Science At IIT

Undergraduate students will be engaged in research projects in the areas of artificial intelligence and software engineering. The areas of investigation are expert systems for program debugging, undergraduate advising, and organic synthesis; programming environments for robotics and graphics applications; and software engineering tools which interact with database systems.